Exploring the Functional Behavior of Domain Walls in Wurtzite Ferroelectrics

Nontechnical description

Ferroelectrics are a broad family of electronic materials that that share one specific characteristic: they have a spontaneous electrical polarization that can be switched. This makes them attractive for technologies such as high-speed electronics and energy efficient computing. This project studies a recently discovered class of ferroelectrics based on aluminum nitride alloys. These breakthrough materials are semiconductors and are compatible with modern manufacturing methods. The focus of the research is domain walls, which are nanometer wide regions that separate regions with different polarizations. Domain walls are found in almost every technologically relevant ferroelectric material. These domain walls can have extraordinary properties, such as high electrical conductivity, that differ completely from the surrounding material. The research team probes how these tiny boundaries behave and how they can be controlled. Understanding them could enable the next generation of compact, energy-efficient electronics and memories. The project integrates research with education and public outreach. These efforts include dedicated science camps to engage middle school and high school students. The research team provides professional development opportunities for high school science teachers from resource-limited rural areas through virtual seminars and laboratory demonstrations. They will also use online multimedia platforms to communicate materials science concepts to the general public.

Technical description

The scientific objective of this project is to determine the atomic structure, field-induced switching dynamics, and electronic transport behavior of domain walls in wurtzite-structured ferroelectric thin films. While prior research primarily addresses bulk polarization switching and device integration in these systems, the microscopic mechanisms governing their domain boundaries remain largely unexplored. This research addresses three fundamental questions: the atomic configuration of neutral 180-degree and charged domain walls; the complex interplay between domain wall mobility, defect chemistry, and strain; and the microscopic origin of domain wall conductivity. Due to the wide bandgap, strongly covalent bonding environment, and large internal stress characteristic of wurtzite materials, domain wall behavior is expected to differ profoundly from that of conventional perovskite oxides. The research team uses an integrated approach that combines thin-film synthesis, post-growth defect engineering, advanced nanoscale characterization, and predictive modeling. Post-growth defect landscapes are modified through controlled helium-ion irradiation. Structural and chemical characterization at the atomic scale is conducted via high-resolution scanning transmission electron microscopy combined with in situ electrical biasing and electron energy-loss spectroscopy. Nanoscale domain wall dynamics, electromechanical properties, and localized electrical conduction are investigated using a set of scanning probe microscopies. These experimental efforts are integrated with first-principles electronic-structure calculations based on density-functional theory to predict stable domain wall configurations, resolve localized defect states, and map the energy landscapes governing polarization reversal. This comprehensive research provides a mechanism-based framework to understand and tailor domain wall functionalities, directly supporting the development of adaptable nanoelectronic and memristive elements in wide-bandgap semiconductor systems.